Mathematical Sciences: Statistics and Statistical Computing

Research is planned in statistical computing, especially on generalized gradient algorithms for maximum likelihood estimation. Regression analysis under model (link) violation will be studied and the slicing regression technique will be used to reduce dimension difficulties. Work on Bayesian experimental design will involve widening classes of priors and investigating minimax, maximin and sequential designs.